A Planning Grant to Initiate an Industry-University-Cooperative Research Center (IUCRC) at Arizona State University

This award is to hold an Industry/University planning meeting for a proposed research site at the Arizona State University which will be a part of the I/UCRC for water Quality at the University of Arizona. The planning meeting will examine the organizational feasibility and economic viability of the research site. A portfolio of initial research projects will be determined. New members will be recruited during the tenure of the award.